Sixth MIT Conference on Advanced Research in VLSI, April 1990, Cambridge, MA

This is a unique conference which brings together academic and industrial researchers working in VLSI, architecture, CAD tools, and theory. It provides forum for interaction between people from different backgrounds, with different priorities and different perspectives. It has one session on at any one time as apposed to other IC design conferences, and this allows better sharing of information among different among different research topics in VLSI. The conference is designed to contribute to a better understanding of the Nation's scientific and engineering research base.